Planning Activities: Development of the University of Mississippi Biological Field Station

For a number of years, The University of Mississippi Biological Field Station (UMBFS) has been a research site for the study of toxicology and human impacts on aquatic organisms and ecosystems. This Field Station is a site where scientists from the University and other institutions representing many disciplines, including biology, geology, engineering, toxicology, and pharmacology, can participate in interdisciplinary basic ecological research, as well as applied research that will affect human health, the environment, and agriculture. Due to recent administrative changes, UMBFS is now poised to broaden its scope of ecological research and its educational mission. UMBFS is located in northern Mississippi approximately 18 kilometers northeast of the Oxford campus. Acquired by The University of Mississippi in 1985, UMBFS includes an area of approximately 296 hectares, and encompasses pine and mixed hardwood forest, bottomland forest, open fields, springs, ponds, and mesocosms offer unique opportunities for experimental research on aquatic ecosystems. A comprehensive programmatic educational educational and research plan developed to best utilize the UMBFS to reach the broadest constituency possible. The UMBFS is a multi- faceted facility that will, when fully developed, provide the infrastructure for educational and research activities concerned with terrestrial, aquatic, and wetlands ecology. Current research projects focus on impacts to the environment from interactions of agrichemicals, toxicological investigations, fish genetics and behavior, avian and herpetological population dynamics, and studies of agricultural water use and conservation. Recently, UMBFS's mission has been broadened to provide enhanced opportunities for both research and education in aquatic and environmental sciences. To further this mission, this project will help support planning and program development.